CAREER: Structure-Topology-Property Correlations in Carbon Nanotubes

9733028 Ajayan The goals defined in this Faculty Early Career Development project are aimed at developing the knowledge base that is needed to predict physical properties of carbon nanotubes as a function of dimensions, structure, defects, and dopants. In-depth systematic experiments are planned to study in the following: 1) the effect of topological defects on structural symmetry, electronic structure and reactivity of nanotubes, 2) the effects of defect mobility in nanotubes during high temperature annealing and electron irradiation, 3) the effect of substitutional boron doping on the structure, topology and properties of nanotubes, 4) the effect of structure and topology of nanotubes on wetting and the formation of interfaces in nanotube-based nanocomposites, and 5) correlation of the information obtained on the structure and topology of carbon nanotubes to transport measurements. The studies will be carried out by spatially resolved characterization and measurement techniques on pure single-shell nanotubes, pure multi-shell nanotubes, doped nanotubes and nanotube-oxide layer composites. State of the art microscopy, spectroscopy, and four probe conductivity measurements will be done on isolated nanotubes for correlating structure, topology and properties. Some of the measurements will be pursued through industrial and international collaborations. The main thrust of the educational plan is to use innovative teaching methods to prepare students for a modern and technologically advanced society. Rensselaer Polytechnic Institute is at the forefront of undergraduate educational reform and in its commitment to introduce flexibility and innovation into the curriculum, most of the courses are being recast into interactive formats. The proposed educational activities reflect the synergy between the long term educational goals of the PI and the institutional a pproach to improving educational methods. A wide range of activities are planned achieve the educational goals: some of these include developing computer based structural models, demonstrations, short simulations and effective team problems for interactive courses, use of multi-media facilities in the classroom, developing modules for the nanomaterials course, involving undergraduates in key research projects, arranging formal and informal seminars to increase science awareness, encouraging industrial stays and international exchanges for students and promoting materials science and engineering as a viable career opportunity among secondary school students in the area. %%% The basic aim of this proposal is to study structure-topology-property correlation in carbon nanotubes. Carbon nanotubes represent the most striking example of how carbon structures can be tailored to exhibit a variety of useful properties by changing local symmetries and topology. Only six years after their discovery, the new knowledge available in the field indicates that nanotubes can be used in a range of applications, for example as nanoprobes and nanoscale electronic devices. It is expected that the comprehensive study proposed here will lead to better utilization of nanotube properties leading to the development of unique functional nanostructures. In addition, the PI will use innovative teaching methods to prepare students for a modern and technologically advanced society. ***